Postdoctoral Research Fellowship in Chemistry

Ms. Heather Lynn Flanagan has been awarded a Postdoctoral Research Fellowship in Chemistry. Ms. Flanagan will receive her doctoral degree from Harvard University under the supervision of Professor David J. Singel. She intends to continue her research at the University of Chicago under the sponsorship of Professor Stephen Berry. Ms. Flanagan's area of postdoctoral research will be intramolecular dynamics in alkali dimers and trimers by resonant multiphoton ionization.